Plant Biology Education Publication Workshop

The American Society of Plant Physiologists (ASPP) is organizing a two day workshop to explore ground breaking approaches for disseminating educational information in a way that will build a strong link between education and research. The expected outcome of the workshop will be the design and initiation of an innovative plant science education publication to be published and distributed as a supplement to one of ASPP's plant science research journals inclusive of all plant biologists.